Molecular Dynamics and Laboratory Experiments on Diffusion in Liquid Oxides

9316390 Richter A detailed study of diffusion in molten SiO2 and GeO2 is proposed. Combined Molecular Dynamics (MD) simulations and laboratory experiments for the magnitude, activation energy, and activation volume for the self-diffusion of Si, O, and Ge will be carried out. The laboratory experiments will provide important benchmarks with which to test the validity of MD simulations carried out using a variety of representations of the pair-potentials. Presently used potentials are reasonably successful at reproducing various static properties of liquid SiO2, but they have not been tested in terms of their ability to reproduce kinetic quantities such as the diffusivity of atomic species. Validating the MD simulations for a simple oxides is a necessary first step towards the realistic representation of silicate melts, and will provide a basis for understanding diffusion at an atomistic level. A question of particular interest is why do all recent MD simulations of liquid SiO2 find that the self-diffusion of Si and O are virtually the same while laboratory experiments on mixed oxide systems always find them to be significantly different?